Data Acquisition and Signal Processing Systems to Improve Undergraduate Instrumentation Laboratories

This project involves the acquisition of three data acquisition and signal processing systems to assist in implementing an innovative approach in teaching instrumentation to undergraduate students. The new approach addresses the need to teach digital data acquisition and signal processing techniques such as: concepts of dynamic system response, data sampling, leakage, aliasing, transformation, and others to mechanical-engineering undergraduate students. In the newly designed instrumentation curricula, spectrum analyzers are being used much like oscilloscopes were used previously. The significance of this new approach to undergraduate instrumentation is due to the fact that industry heavily uses these techniques while they are not taught in the schools (at least in mechanical-engineering curricula). These principles will be taught not only in the class room environment but also through newly designed laboratory experiments in two undergraduate instrumentation courses. The equipment will provide the laboratories with three work stations consisting of personal computer controllers, data acquisition and signal processing peripherals, and appropriate signal condition and excitation hardware.